Electromyographic. Histochemical and Mechanical Properties of the Shoulder Muscles in Alligator Mississippiensis: Implications for the Evolution of Flight(Biological Science)

This study will determine the function and neuromuscular organization of shoulder muscles in Alligator mississippiensis. These data are relevant to 1) the biomechanics of locomotion, particularly to speed-correlated changes in limb mechanics, 2) to functional interpretations of the origin of avian flight, and 3) an understanding of evolutionary patterns and constraints in complex functional systems. The research will focus first on the mechanical properties and neuromuscular organization of the pectoralis and supracoracoideus muscles using data on histochemistry, architecture, innervation pattern and contractile properties, and second on the neuromuscular activity pattern (determined by electromyography) and its relationship to the kinematics of the forelimb over a range of locomotor speeds. The significance of the expected results is as follows: 1) The analysis will, for the first time, provide detailed information on muscle function in a generalized reptile over a range of speeds. 2) The pectoralis and supracoracoideus muscles are homologous to the primary flight muscles of birds. The results of the study, when compared to those already available for avian muscles, will permit, for the first time, a detailed analysis of the functional differences associated with the evolution of flight. 3) It has been proposed that the neural control mechanism for shoulder function during locomotion is relatively conservative and constrains or canalizes functional change. Testing of this hypotehsis is significantly furthered by the results of the proposed study. Dr. Peterson will co-direct a course in Comparative Vertebrate Anatomy, and a graduate (advanced undergraduate) seminar on scaling (allometry), or co-teach a graduate (advanced undergraduate) seminar on the neural control of locomotion. In addition she will counsel and advise students. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.